U.S.-France Cooperative Research: Silicon Quantum Dot Electronics

9909264
Tsybeskov

This three-year award for U.S.-France collaboration in materials research involves Leonid Tsybeskov, graduate and undergraduate students at the University of Rochester, researchers at the Material Technology Laboratory of Motorola, and Christophe Delerue at the Institute for Electronic and Microelectronic Research in Lille, France. The project, supported under the joint program of the National Science Foundation and the French National Center for Scientific Research (CNRS), is focused on silicon quantum dot electronics. The collaborative research effort involves theorists (Lille), materials scientists and applied physicists (Rochester), and industrial experts (Motorola). The Rochester group will conduct experiments on carrier transport in nanocrystalline Si superlattices and device prototype development. This will be complemented by theoretical investigations in Lille on nanoscale objects and devices. The Motorola group will serve as industrial mentor to this program and focus on the compatibility of manufacturing and microelectronic standards. In addition, scientists at Motorola will help establish Si quantum structure metrology, a characterization technique, which eventually will be transferred from a university laboratory to an industrial fabrication line.